POWRE: Broadening Engineering Education: Inside the Classroom and Beyond

9973358
Pantazidou
An award under the POWRE program will support a one-year residence at the Graduate School of Education at Berkeley. There, the PI will complete three projects that aim at making the engineering learning process an explicit part of course design, helping students understand the nature of expert knowledge, and providing intellectually stimulating outreach activities. The first project will articulate a set of instructional goals for an undergraduate soil mechanics course and use applications of cognitive science results to achieve these goals. The second project will develop a "Habits of the Mind" seminar with emphasis on the core paradigms in selected scientific and engineering disciplines. The third project will design the infrastructure for K-12/ university learning partnerships of mutual educational value. Support is provided under the POWRE program because the project is a significant deviation from, and enhancement to, the investigator's regular career path.
***